New Methods for the Simulation and Analysis of Waves

New Methods for the Simulation and Analysis of Waves
Thomas Hagstrom
9971772

We will develop, analyze, implement and apply new methods for the solution
of wave propagation problems. Our primary focus is on numerical techniques
which can efficiently and reliably utilize the capabilities of modern
computers to simulate problems whose scale has hitherto precluded their detailed study.
A large scale wave propagation problem will generally be given in an extended spatial
and/or temporal domain. In engineering applications, the domain will also usually
involve bodies with complex shapes. These features all pose difficult challenges to
numerical algorithms. The radiation of energy to the far field is a feature of
most wave systems and is associated with large spatial domains. To make computational s
solutions feasible, the domain must be artificially truncated. This truncation introduces
errors which have been difficult to estimate or reduce. In recent years, we, along with
other researchers, have developed new techniques for imposing accurate truncations, which
solve this problem in some special but important cases. As part of this project, we will
extend the applicability of these new methods. Long time simulations also make special
demands on the accuracy of numerical approximations. In particular, small inaccuracies
in the wave speeds or the effects of numerical damping will generally accumulate to
produce large errors. Therefore, highly accurate methods must be used. However, these are typically difficult to apply in complex geometries. We will work on the development
and analysis of new methods with high orders of accuracy which can be more easily
utilized near bodies with complicated shapes. Finally, we will study some basic
problems related to the existence, smoothness, and asymptotic approximability
of solutions to the compressible Navier-Stokes equations, which describe the
motion of most common liquids and gases. We are particularly interested in
flows which are slow in comparison with the speed of sound. Such flows are
typically modeled by the incompressible Navier-Stokes equations, whose
mathematical theory, though still quite incomplete, is better developed. We,
however, retain the compressible effects, and study both theoretically and by
simulation the relationship between the solutions of the two systems.

In our work we focus on some specific physical systems, primarily from the
fields of acoustics and fluid dynamics. As such, we hope to enhance our
capability to use high-performance computing to predict the production and
interaction of sound with fluid flows. However, due to the general importance
of wave theory and the underlying unity of its mathematical description, most
of our results will be directly applicable in diverse areas such as
electromagnetism and elasticity. In the long term, an improved capability to
simulate waves will have important applications including the reduction of
aircraft noise, the improvement of radar and sonar imaging, the predictability
of the effects of earthquakes, and the design of better communications systems.